An Algebra Reform Curriculum for Community College Students:Evaluating Effects of Students/Faculty Perceptions on Implementation.

9354471 McGowen The project is a collaborative effort between two-year college and four-year college and university faculty in the preparation of curriculum materials, teacher supplements, and workshop materials for a developmental algebra reform curriculum. In addition, the project leaders are engaging in dissemination activities to determine the effects of implementation of these materials. The curriculum materials are designed to provide students with greater mathematical literacy and a stronger foundation to bridge the gap to calculus. The project is investigating the adaptability of current calculus reform dissemination models for use in an algebra reform curriculum. They are also designing a model for evaluation of student attitudes and performance in comparison with students taking introductory and/or intermediate algebra in a traditional setting, as well as an instrument to document pedagogical changes in teachers trying to implement a non-traditional curriculum. A proposed outcome of the project is a model for implementing a reform algebra curriculum and the establishment of a network of two-year and four-year college developmental mathematics implementers for a particular curriculum reform project. ***y